Projection Methods for Balanced Model Reduction

This project proposes the development of reduced models for large-scale
linear time invariant (LTI) systems of the form

dx/dt = Ax + Bu, y = Cx

through low rank approximation of certain system Grammians. Complex systems
of this form arise in circuit simulation; they also arise through spatial
discretization of certain time dependent PDE control systems.

A new approach to model reduction will be studied, that will address some
fundamental difficulties with existing dimension reduction techniques.
These issues are central to the potential development of robust and widely
applicable software. We intend to develop a computational methodology that
will:

(1) Provide rigorous bounds on the response error of the reduced system;
(2) Naturally preserve fundamental system properties such as stability;
(3) Be fully automatic once a desired error tolerance is specified.

We propose to investigate subspace projection methods of Krylov and
non-Krylov type. Our primary goal will be to develop implicit restarting
methods that will iteratively produce low rank approximations to
controllability-, observability-, and cross-Grammians which are near best
approximations of reduced rank to the full Grammians.

The methods proposed will provide balanced partial realizations of large
state space systems. Our computational experience with model problems
indicates that the Hankel singular values of many systems decay extremely
rapidly. Hence very low rank approximations to the system Grammians are
possible and accurate low order reduced models will result.

We expect to find important applications in circuit simulation and in
the control of systems governed by partial differential equations,
particularly parabolic equations subject to boundary control. There is
great potential in such problems for extensive dimension reduction. This
will enable the design of real-time controllers for complex systems.